Local properties of the finite element solutions to PDE constrained optimal control problems

The research objective of this project is to develop a strong theoretical
foundation on local properties of finite element solutions for advection-
dominated optimal control problems. The advection-diffusion partial
differential equations (PDEs) are known to be difficult to approximate because
their solutions often exhibit discontinuities, layers, and shocks. The
structure of the solutions to optimal control problems is even more
complicated because of the coupling in the optimality system of the governing
advection-dominated PDE with an advection-dominated adjoint PDE. It is known
that convergence behavior of finite element methods applied to single
advection-dominated PDEs can be very different from the convergence behavior
of finite element methods applied to advection-dominated optimal control
problems. Understanding the global and local convergence behavior is crucial
for reliable and efficient solution of advection-dominated optimal control
problems, especially in the presence of control and state constraints, and
objective functions that depend on pointwise state information. This project
intends to deepen our understanding for various problems and to help develop
reliable numerical methods.

Mathematics proved to be extremely useful in modeling many real life problems
coming from environment, technology, climate, and etc. However, many
mathematical models require special parameters that can not be measured
directly. Examples can be shapes in modeling technological devises, physical
coefficients in environmental processes, controls in navigation and etc. and
need to be estimated. Mathematically, estimation of such paramters often
leads to optimization problems with constraints in the form of system partial
differential equations (PDEs). Usually, such system of PDEs is well understood
and there are many available numerical techniques to solve it. However, it
does not immediately apply that the method that works well for the underlying
system of PDEs will work for the constrained optimization problem. In our
previous work, we showed such differences in the case of a simple model
problem. In this proposal we intend to investigate more complicated model
problems that cover a broader range of applications.